COSEE-China Planning Workshop

Dr. Robert Chen of the University of Massachusetts, Boston and Dr. Minhan Dai of Xiamen University proposed a U.S.-China Workshop to plan for the establishment of a Center for Ocean Science Education Excellence in China. The workshop will be held in Beijing in 2010. The goal of this workshop is to exchange information between the U.S. and China on ocean science education and to explore the establishment a Center for Ocean Science Education Excellence in China. This workshop will be supported jointly by the National Natural Science Foundation of China and the U.S. National Science Foundation.